Materials Chemistry Workshop

This award is made to Drs. Mark Hampden-Smith and William Buhro in the Advanced Materials and Processing Program of the Chemistry Division to organize and partially support a Materials Chemistry Workshop. The first workshop, to be held in Albuquerque, NM.,October 21-24,1993, will bring together about thirty participants, active in materials chemistry research and education, to discuss in an informal setting, research in progress and new directions for materials chemistry. The focus of the workshop will be the molecular chemical aspects of materials science. Participants will be drawn from academia, industry and government laboratories and each participant will give a thirty minute presentation of his or her work. A report, summarizing workshop discussions will be produced and submitted for publication in appropriate materials-related journals. %%% The subject workshop brings together active researchers to discuss ideas and identify new directions and opportunities for chemists and chemistry in Advanced Materials and Processing, a critical technology for national growth and development.